ITR: Digital Hammurabi - High Resolution 3D Imaging of Cuneiform Tablets

This proposal is concerned with developing of 3-D scanning methods to be applied to the imaging of cuneiform tablets. This process can make the tablets more readable by "deepening" the marks in tablets badly worn over centuries, thus sharpening the images. The panel gave this proposal a Highly Competitive rating, noting that it was an excellent proposal with innovative work in information technology and the humanities and social sciences. For IT, the impact is the development of a portable, very high resolution surface scanner and the multi-resolution algorithms. For the humanities, the project represents significant work with a potentially very wide application to other other objects with the result of opening up new fields of study to a larger group of scholars. The technology and techniques developed can be imported to other areas of study of ancient cultures and languages.